MRI: Acquisition of SMP Clusters for Supporting Shared-Memory Metacomputing Research

EIA-0116759
Angkul Kongmunvattana
University of Nevada Reno

MRI: Acquisition of SMP Clusters for Supporting Shared-Memory Metacomputing

This is a proposal for equipment acquisition under the Major Research Instrumentation (MRI) program to support research and student training in the development of high-performance distributed computing systems. The goal is to develop efficient system software for supporting a seamless programming environment on symmetric multiprocessor (SMP) clusters.